Texas Geometry and Topology Conference

Abstract

Award: DMS-0306628
Principal Investigator: Huai-Dong Cao and Jon T. Pitts

The Texas Geometry and Topology Conference has been held spring
and fall since its founding in 1989, a total of 28 times. The
conference has become an extremely successful semiannual event in
the Southwest. The next series of conferences will have six
primary sponsoring universities: The University of Texas at
Austin, Texas A&M University, Rice University, the University of
Houston, Texas Tech University, and Texas Christian
University. The conference is designed to enhance both the
educational and the research atmosphere of the growing community
of Texas geometers and topologists. The conference is committed
to bring researchers of national and international stature to
Texas to discuss their research and to interact with
mathematicians from Texas and surrounding states. Summaries of
talks with notation of important results have been reported
annually for some time and will continue similarly in the future.

By design, the Texas Geometry and Topology Conference has two
high-impact foci. First, the conference makes it possible for
the community of geometers and topologists from Texas and
surrounding states (a huge geographic region) to meet and share
mathematics on a regular basis, which both stimulates individual
research and generates productive cooperative efforts between
schools. Second, the conference is committed to the
strengthening and enrichment of the mathematics personnel base.
In order that there be no barrier to participation, the
conference is widely advertised, participation is open, and there
are no registration fees. Graduate students, junior faculty,
women, minorities, and persons with disabilities are especially
encouraged to participate and to apply for support.